Nerve Graft Supported Optic Fiber Growth

Until recently, regeneration of severed nerve processes in the central nervous system (CNS) was not thought to be possible, except in lower animals such as amphibians and fishes. However, recent studies in this country and abroad have made it clear that, given the right local environment around the cut nerve, such regeneration may indeed be possible. This project is designed to investigate regrowth of axons from neurons in the eye (retinal ganglion cells) which have been severed as they pass into the brain. Grafts of peripheral nerve will be placed nearby in an attempt to enhance the regrowth of these axons within the brain. Anatomical studies will be performed to determine how these axons respond to the graft in terms of regeneration or the sprouting of new branches from the intact portion of the axon.